Stereospecific Solvation Studies

This project is in the general area of analytical and surface chemistry and in the subfield of separations science. In an innovative program of synthesis and physical chemical characterization, Professor Pirkle and his students will develop new stationary phases for the liquid chromatographic separation of chiral molecules on both analytical and preparative scales. The ability to design and and implement chromatographic systems capable of resolving enantiomers of many compounds is of immense fundamental, practical, and technological significance across a broad front of disciplines. Of particular note is the importance of this research to the pharmaceutical industry and in a variety of biotechnological applications. Fundamental studies of the mechanisms of molecular interactions between stationary and mobile phase components are expected to give rise to new insights that will be applied to the design of new technologically important membrane-based separations systems.